Pacific Rim Application and Grid Middleware Assembly

0314015
Arzberger

This is a three-year proposal submitted by Dr. Peter Arzberger, University of California at San Diego to expand the Pacific Rim Application and Grid Middleware Assembly (PRAGMA). This assembly currently includes founding members from nine economies and14 high-performance computing institutes in the Pacific Rim region. This is a renewal of the first PRAGMA project, which was a seed project awarded jointly by the East Asia and the Pacific Program and the Partnerships for Advanced Computational Infrastructure Program (PACI) for the period of March 1, 2002- February 28, 2004. The purposes of the renewal proposal are to provide the following activities to enhance grid applications and to develop grid middleware in the Pacific Rim region: (1) participation in face-to-face meetings, (2) coordination and expansion of cooperative activities to include more institutes and countries, (3) supporting the development of grid infrastructure and middleware in the region, and (4) building collaborations via focused grid and application infrastructure and demonstration projects. This proposal is jointly supported by the following four NSF units: the Office of International Science and Engineering, Division of Advanced Computational Infrastructure and Research, Division of Advanced Networking and Research, and Division of Biological Infrastructure.